Collaborative Project: Extended Gas Around Irregular Galaxies and Its Role in the Evolution of the Optical Galaxy

Wilcots, Eric AST 96-16907 Dr. Wilcots will study the structure, distribution, kinematics and other properties of giant H I envelopes around irregular galaxies. The project has four specific goals -- to reveal what, if any, structure there is in the extended gas; to measure the kinematics of the far-flung gas; to determine the relationship between the gas in the outer parts of the galaxy with that in the inner parts; and to determine the relationship between the extended gas and the star formation history of the optical galaxy. This is a collaborative proposal with Dr. Deidre Hunter at the Lowell Observatory.